Acquisition of a High Performance Workstation for the Calculation of the Properties of Positronium and Other Bound Systems

Funds are provided by the NSF Major Research Instrumentation Program to purchase a DEC Alpha 500/500 workstation for high precision calculations on QED bound systems such a positronium.